Fabric-Reinforced Cement Composites by Pultrusion: Manufacturing, Properties, and Modeling Aspects

Abstract
The research is aimed at developing a novel cost-effective method for the production of
high performance thin-sheet fabric-reinforced cement composites. Thin elements (about 10 mm thickness)
represent a major category of cement-based composites and may be used as wall panels, exterior siding,
tiles, roofing members, and pressure pipes. For such elements addition of reinforcement is essential in
order to improve the tensile and flexural performance. The proposed fabric-cement systems have the
potential to be used as structural load bearing members, thus competing with other board type materials
such as wood, synthetics, or metals.
The challenge in developing an industrial production method to produce
thin sheet cement elements with fabrics is not only technological, but also scientific, as it is demonstrated
that the production method can have substantial impact on the properties of the final product. To
practically use fabric-cement composites, an industrial cost-effective production process such as the
pultrusion process is proposed here. The main scientific goals of this research are: 1) development of the
pultrusion processing for fabric reinforced cement composites, 2) development of cement mixtures with
appropriate rheology for the process, and optimal mechanical performance, and 3) optimization of fabric
materials and structure for various new and retrofit type products, and 4) development of theoretical
approaches to help the designers with implementation, commercialization, and use of these materials.
The intellectual and
educational components of this work will involve the interaction of two senior personnel with several
students in a project that is addressed at an international level. The potential for developing new durable,
strong, environmentally friendly, and economical, construction materials is a global challenge as we look
at the diminishing energy and scarce natural resources. The promising combination of fabric
reinforcement in cement composite products and the pultrusion process is expected to lead to an effective
novel technique to produce a new class of high performance fabric-cement composite materials. Such
breakthrough may open the way for a multitude of new products and applications. It will also address an
economical means of retrofitting existing reinforced concrete structures and masonry walls. The short
term objectives include the development of economical materials and processes to manufacture them. The
long term objective of this project is to present to the engineering community an alternative building
material fit for the 21st century.